Organic Electroreductions. Synthesis and the Role of Tetraalkylammonium Ions

This project is in the general area of analytical and surface chemistry and in the subfield of electroorganic synthesis. Professor Essie Kariv-Miller is pursuing the use of tetraalkylammonium cations in the catalytic reduction of organic compounds. The importance of this research lies in affording products that would otherwise not be formed electrochemically in the absence of these catalysts. Synthetic and electrochemical efforts are to be applied to further the understanding of and make use of reductive organic chemistry. Cathodically catalyzed cyclizations of ene-al and ene-imine reactants are to be explored. A goal is to see if tetraalkylammonium cation catalysts can affect the organic cathodic products formed in these reactions.